U.S.-Japan Seminar: Hyperon-Nucleon Interactions/October 1993/Hawaii

This award supports the participation of eleven U.S. scientists in a U.S.-Japan Seminar on Hyperon-Nucleon Interactions, to be held in Hawaii October 25-28, 1993. The co-organizers are Dr. Peter Barnes, Director of the Los Alamos Meson Physics Facility (LAMPF) and Professor Kozi Nakai, Head of the Proton Synchrotron Physics Division, National Laboratory for High Energy Physics (KEK), Japan. In addition to participants from the United States and Japan, scientists from Canada, France, Germany, Israel, The Netherlands, and Korea have been invited. The seminar will focus on investigation of techniques to perform hyperon-nucleon scattering experiments in the U.S. facilities at the Brookhaven National Laboratory and Los Alamos and the Japanese facilities at KEK. The utilization of modern kaon and pion beans, combined with new techniques in tracking detectors, makes possible a new generation of hyperon production and decay measurements. Special emphasis will be placed on the status of theoretical approaches to these problems and identification of those observables, which will clarify the theoretical issues. The discussion will include analysis of topics related to hyperon-nucleon scattering such as hypernuclear spectroscopy, H dibaryon searches, polarization in hyperon production, and hyperon semileptonic and nonmesonic weak decay. The participants will formulate specific plans for realistic experiments.